Model Proj: Improving the Climate for Women in Physics Departments

The purpose of this program is to gather information about the climate for women in physics departments across the country and to feed this information back to these departments, accompanied by suggestions outlining how each department can assess its own climate and then act to improve it. General information about climate issues will be obtained by producing, distributing, and analyzing questionnaires for undergraduate and graduate students. These will seek to identify the special problems and concerns of women students. More specific information about climate issues will be obtained by visits by four or five physics faculty, predominantly women, to 10 physics departments offering both graduate and undergraduate physics programs. Each visit will be by invitation by the department and the university. A written report by the visiting team to the physics department will follow each visit. Six months after the visit, the department will be requested to provide feedback on changes that have resulted from the visit. At the end of the grant period, the results of the national questionnaire and a summary report of the 10 visits will be available to the physics community. The principal investigators will also prepare a report on the project that will be distributed widely.